Distribution of Power Generation System Production Costs

The purpose of this research is to extend recent work of the investigators in the area of power system reliability and the computation of variance and higher order moments of power system production costs. It is expected that this work will add insight to the relationship between production costing models based on chronological simulation and those based on the load duration curve.